Conference on the Recruitment and Retention of Women in Physics; November 2-3, 1990; Chevy Chase, Maryland

Through this award to the American Institute of Physics, partial support is provided for a conference on the recruitment and retention of women in physics to be held in November 1990 in the Washington, D.C. area. The conference will focus on recruitment and retention of women at the undergraduate and graduate student levels. One of the important goals of the conference is to identify the attributes of departments that have been successful in attracting and keeping women in physics programs. The invitees will include representatives of professional societies, physics faculty members, and female faculty from smaller institutions and women minority students will be especially encouraged. Conference proceedings will be published and results of the conference will be discussed at the annual joint meeting of AAPT and APS in winter, 1991.